REU Site for Research in the Biological Sciences

Undergraduate students will take part in a three year summer research site
program in the Department of Biological Sciences at Wellesley College, an
undergraduate college for women, which has a strong interest in the
research training of undergraduates. Applications will be actively
encouraged from Wellesley College Biology, Psychobiology, Biological
Chemistry and Environmental Sciences majors, students from regional
liberal arts colleges and universities, as well as similar institutions
nation-wide. These students will have a serious interest in gaining
research experience to add to their demonstrated academic talent. They
will already have shown an ability to think independently and
imaginatively, and will have strong recommendations from knowledgeable
faculty at their own institutions. Ten participants for each of the three
years will be selected by the PI and the participating faculty. The
selected students will take part in a lively, instructive, ten week
program. Under the guidance of their faculty mentor, each student will
participate fully in an active research program. This will include
everything from pursuing a literature review, to carrying out independent
experimental procedures and observations, and continuing to the analysis
of data and the determination of conclusions. Each will also prepare and
deliver a presentation of results to the entire program in a weekly
seminar series. This, along with a series of demonstrations of the
techniques utilized by other laboratories, and a final poster session,
will familiarize each student with the wide variety of active research
programs in the Department. Throughout the summer seminars and workshops
will be presented by scientists, and field trips will be taken to field
research sites and biotechnology companies. It is expected, based on
previous experience, that participation in this program will have a
significant impact on the future of these undergraduates, as most will
pursue advanced degrees.